GLOBE CONFERENCE

This award is providing partial support to convene the Annual Conference and Partners Meeting of the Global Learning and Observations to Benefit the Environment (GLOBE) program, being held July 15-20, 2012 in Minneapolis, MN. St. Catherine University and the National Center for STEM Elementary Education are hosts of the meeting. The theme of this year's GLOBE Annual Conference is: "GLOBE and STEM: Building a Global Community of Citizen Scientists". It is anticipated that approximately 150 attendees from across the 113 U.S. Partners and 111 Partner Countries will attend the 2012 meeting. Specific activities to be undertaken at the meeting include: training in the use of selected GLOBE protocols; training in the use of the new GLOBE community web site for data entry and analysis (scheduled for release in June, 2012); discussing major themes related to GLOBE activities and STEM education, both locally and globally; exploring the interface of GLOBE and American Sign Language; and GLOBE community networking and sharing of resources.